Moduli spaces of flat connections and Hamiltonian actions of loop groups

Abstract

Award: DMS-9971721
Principal Investigator: Kevin Corlette

The principal investigator proposes to work in two directions.
The first is a study of equivariant harmonic maps and other
variational problems by means of Morse theory. There are certain
situations where a symmetric but singular solution of a
geometrically defined variational problem exists. Under suitable
circumstances, techniques from Morse theory can be used to deduce
the existence of additional nonsingular solutions of the same
problem. The second direction is is related to the problem of
finding complete hyperkahler manifolds. There are results of
Bando-Kobayashi and Tian-Yau which give the existence of
Ricci-flat Kahler metrics on quasiprojective varieties realized
as complements of suitable anticanonical divisors in Fano
varieties. It appears to be a very restrictive condition on
these metrics that they should be hyperkahler. However, if one
relaxes the smoothness conditions on the divisor, one knows
nontrivial examples exist. We propose a search for nontrivial
Poisson structures on projective varieties which might be
associated with complete hyperkahler metrics.

The work in the first part of the proposal was motivated by a
question asked by a physicist who works on the theory of gravity.
There are certain special solutions of the system of equations
describing gravity in the presence of a Yang-Mills field which
have attracted a great deal of attention over the past decade
because they have no singularities, i.e. no black holes. There
is an infinite family of solutions to this system of equations,
and they approximate a black hole solution in the limit. The
question asked was whether or not one can explain the existence
of these solutions based on the symmetry in the problem and the
"shape" of the space of candidate solutions. This problem is
very difficult, but there is an analogous problem involving
harmonic maps between spheres (trying to fit one sphere inside
another as efficiently as possible) which is more accessible.
The second part of the proposal involves an attempt to find
examples of geometric spaces called hyperkahler manifolds. These
have been objects of intense interest over the past 20 years or
so, for a number of reasons. They arise in algebraic geometry,
but also are related to issues in classical and quantum
mechanics, and have made an appearance in various formulations of
string theory.